Laboratory Investigation of Magnetized Dusty Plasma

The funds are provided for two year continuing award to demonstrate the feasibility of diagnosing the physics associated with measuring the properties of dusty plasmas in a magnetic field.